A Workstation Library for Bioengineering

A revised bioengineering curriculum has been adopted that emphasizes the integration of introductory science with early engineering studies. An essential component of this curriculum is that each semester includes a laboratory course that will serve to integrate all aspects of the program. The "workstation library" includes the necessary computational, data acquisition and data handling infrastructure needed to make operation of the new curriculum and laboratories feasible. It includes hardware, in the form of 20 Unix-based workstations integrated with the laboratory, the server that networks the workstations, and software for mathematical manipulation, simulation, and symbolic manipulation, as well as report preparation and presentation. The workstation network is accessible through the existing university computer network, allowing off-site access to the workstations. Laboratory instruments will also be accessed through the workstation network. The aim is to make the laboratory as essential and important a component of each student's learning and educational experience as are other information sources such as libraries and texts.